Numerical Schemes for Multiscale Stochastic Bio-chemical Systems

Rathinam
The investigator develops efficient numerical schemes,
software, and theoretical analysis of these schemes for the
simulation of continuous-time discrete-state stochastic dynamic
systems that exhibit "multiscale behaviour." Examples of such
systems include chemically reacting molecular systems, traffic
models, and markets. In principle such systems can be simulated
exactly one "event" at a time. But the computational costs are
often prohibitive for large systems. Continuous macroscopic
models -- either stochastic or deterministic differential
equaitons -- often prove to be valid approximations to such
models and in that case several numerical methods exist for their
efficient simulation. However, some systems exhibit "multiscale
behaviour" in the sense that only parts of the system may be
approximated by such macroscopic models while the remaining
components need to be represented by a discrete and stochastic
model. Motivating examples are found in intra-cellular gene
transcription mechanisms, where the fluctuations of certain key
molecular species present in very small numbers have a critical
effect on the final state of the system. The investigator aims to
develop numerical schemes and theory that target such multiscale
systems. These schemes allow simulations to leap over several
events while maintaining required level of accuracy.
Computer simulation methods and their theory are well
developed for systems, such as a space craft in motion, that
follow a deterministic and continuous motion. However, in some
complex dynamic systems, such as chemical reactions inside a
cell, the behaviour of traders in a large market, and the
internet traffic of data, the entities change in small jumps that
occur randomly in time. The investigator develops important new
tools for the efficient computer simulation of such dynamic
phenomena. The impact of these tools is in the scientific
computation of biological, social, and economic systems. This
project also provides opportunities for graduate and
undergraduate students to develop their skills in modeling and
simulation of such phenomena, which are useful in financial,
pharmaceutical, and biotechnology industries.